'Giant Screen Films and Lifelong Learning:' A One-Day Symposium

9910643
KOSTER

The Liberty Science Center is conducting a one-day symposium to be held immediately prior to the annual meeting of the Giant Screen Theater Association. The purpose of the symposium is to bring together large format film producers, distributors, and theater owners to reflect on the educational aspects and the presentation of science in the large format film medium. Presenters will include producers, science educators and researchers/evaluators who have worked in the medium.